International Congress of Mathematicians (ICM-98) Travel Grants for U.S. Particips.

The American Mathematical Society will administer a program of travel grants for U.S. mathematicians to attend the 1998 International Congress of Mathematicians, Berlin, Germany, August 18-27, 1998. This will be similar to travel support programs conducted in 1990 and 1994. Approximately $200,000 will be awarded. This program is open to U.S. mathematicians (those who are currently affiliated with a U.S. institution). Applications will be evaluated by a panel of mathematical scientists, who will use their judgment in evaluating professional qualifications. Travel awards are intended to provide partial support and may be used for travel or subsistence costs. Junior mathematicians will receive a slightly higher award amount. Mathematicians who accept the support offered under this program may not supplement it with any other NSF funds.